The Electronic Guidebook: Extending Museum Experience Using Networked Handheld Computers

9901985
SEMPER

The Exploratorium will develop "The Electronic Guidebook: Extending Museum Experience Using Networked Handheld Computers." Through this project, the Exploratorium and the Concord Consortium will investigate the use of new technologies to enhance the learning experience of science museum visitors. The exponentially increasing availability of portable personal computing devices provides an opportunity for science museums to develop new ways for visitors to experiment and interact with exhibits. The partners will design and prototype a museum-based "Electronic Guidebook" for visitors. Twenty-five Exploratorium exhibits will be connected to a museum network and handheld portable computers through infrared connections. The target audiences for this project are the general public (adults and families) and children in the K-12 age range. The primary disciplinary focus is physics, with a secondary focus on mathematics.